Animations, Portfolios and CD-ROM Technology in Science and Calculus

This proposal is building on BMCC's successful NSF Undergraduate Faculty Enhancement program. The project is providing summer workshops for mathematics faculty which emphasize students working in groups and use of computer graphers and computer algebra systems to create written honors projects and animated calculus movies. The student population at BMCC is two-thirds women, and eighty-five percent African-American and Latino. With support from NSF, DOE, and MSIP, they have been highly successful in attracting and retaining increased numbers of women and minority students into our Precalculus, Calculus, and Differential Equations sequence. The new workshops are adding new techniques in technology and collaborative learning to the workshops which includes science projects developed through their NSF-CCD grant, CD-ROM technology, and two 1-day academic year workshops each year. Physics and chemistry faculty are attending the workshops as well as mathematics faculty. The project is sharing what is learned and developed with other faculty in the region by instituting two regional summer faculty workshops for each of two summers. One workshop is for faculty inexperienced in technology on the preparation of collaborative computer portfolios in Science and the Calculus sequence. The second workshop is for faculty more experienced in technology. Two 1-day academic year workshops each year are for follow-up activities.